RUI: Group Testing for Complexes

The screening of data sets is essential to modern technology.
Whenever the objective is to find "positive elements" in a
data set, a test indicating whether at least one positive is
an element of a specific part of the data set can greatly
facilitate their isolation. Such tests are called binary
group tests and the general mathematical method behind the
identification of the positives using such tests is known as
classical group testing. In many applied settings, the use
of classical group testing to isolate objects that are
individually positive has become standard experimental
procedure. However, very little work has been done in
applying group testing techniques to the identification of
objects that are collectively positive. Let C be an unknown
collection of subsets or complexes in a population and let P
be a pool taken from the population. A pool P is said to be
positive if and only if a member of C is also a subset of P.
The identification of C by the application of these binary
tests is called group testing for complexes.

The primary aim of this proposal is the development of efficient
group testing methods that lead to the identification of
positive combinations of objects, namely the positive complexes.
There are many scientific and technical areas where the
identification of positive combinations of objects is important.
Computationally feasible methods of finding combinations of
entities that produce some measurable outcome or are measurably
linked to some function or disfunction would have important
applications to medical genetics, computer security, software
testing, data mining, communications, and marketing.